Colloidal Quasicrystals at Optical Length Scales: Assembly, Dynamics, and Thin-film Fabrication

Materials like metals and salts are formed from repeating atomic patterns that give them a crystalline structure. Quasicrystalline materials are different: they are highly ordered but entirely non-repeating. This unique arrangement gives rise to unusual optical properties with potential applications in light transmission and laser technologies. Realizing these applications, however, requires reliable methods for producing large, high-quality quasicrystals. A deeper understanding of how they form is needed. Most studies have focused on the final structures of atomic materials, providing little insight into the pathways they follow as they form. This project uses colloids to observe quasicrystal formation directly. Colloids are microscopic particles that behave as large-scale models of atoms. Their interactions can be precisely controlled and their assembly monitored with an optical microscope. Therefore, colloids provide an ideal platform for studying the fundamental mechanisms of quasicrystal growth in real time. By uncovering these mechanisms, this project develops strategies for fabricating large quasicrystal domains suitable for optical technologies. The research provides an exceptional platform for training young scientists by allowing them to observe the formation of novel materials as it happens.

This research introduces a field-programmable experimental platform that addresses key gaps in our understanding of quasicrystal formation. While simulations have long shown that quasicrystals can be formed with carefully designed interaction potentials, their experimental realization has remained challenging. This project couples electric and magnetic fields to dynamically and reversibly tune interparticle interactions in standard colloidal suspensions, providing a practical, broadly accessible route to quasicrystal assembly. By constructing quasicrystals from microparticles, this project uniquely enables real-time, particle-resolved visualization of quasiperiodic order using optical microscopy, allowing direct measurement of nucleation pathways, growth kinetics, and stabilization mechanisms across a wide range of effective temperatures and quench rates controlled by the applied fields. A single-component strategy uses orthogonal fields simultaneously to stabilize equilateral square and triangular motifs, thereby enabling quasicrystal formation without engineered multicomponent interactions. The mathematical equivalence of electric and magnetic dipolar interactions implies that the additional electrohydrodynamic effects are a critical, underexplored mechanism in quasicrystal assembly. Identifying and quantifying these contributions advances fundamental understanding of quasiperiodic self-organization and inform broader technologies that leverage electrokinetic flows, including microrobotics and active-matter systems. Finally, the project develops a scalable fabrication process for making thin-film quasicrystals and characterize their optical properties.